Interfacial Transport and Liposome Formation in the Artery Wall

9223089 Rumschitzki This biotechnology project deals with biomedical processes in the artery from an engineering point of view. It sets forth a new hypothesis that the initiation and growth of subendothelial extracellular lipid packets known as lipsomes depend on the localized endothelial leakage sites in artery walls. Subendothelial transport parallel to the surface associates an effective radius to each leak. The project explores the hypothesis that a new spot that overlaps a recent one greatly increases the probability of liposome formation. This approach incorporates artery wall architecture, and in particular, intimal ultrastructural details, to derive transport coefficients and a convective-transport theory to predict spot sizes and to quantitatively link leakages to liposomes. Together with the support of a complementary NIH grant to biological collaborators at Columbia University, the project includes the design experiments to determine parameters needed for these models (e.g., internal elastic laminar fenestral sizes and spacing, leakage frequency and duration) and to prove this colocalization. Finally, preliminary models are expanded that track liposome initiation and growth, design experiments to test them and to determine their parameters and tie these models to the lipoprotein leakage processes just mentioned. The novelty of the this project lies in the model's serious consideration of actual artery wall architecture to formulate a transport theory that appears much more able to account for observation than previous models and in its unique co- development with animal experiments. It ties together a group of phenomena, each of which is under study and is of interest in its own right, in a new and unique way into comprehensive view of foam cell lesion initiation . (In particular, it combines work on transendothelial lipid transport and work on water transport through normal junctions by the PI's group, Truskey's group and others togeth er with work by the Simionescus and by Frank and Fogelman on liposome formation and with work by Wight's group on intimal and medial proteoglycan structure. Success of the project would firmly link the chain of events leading to the early formation of foam cell lesions which can progress to arteriolsclerosis. It would firmly establish the type of transport processes that carry elevated lumen levels of cholesterol into the artery wall and connect them to reaction-like liposome-forming processes that can trigger endothelial cells to recruit monocytes from the lumen to enter the arterial intima. This is one of the important pieces still missing from the understanding of the early disease process. The project is jointly supported by two Engineering programs: Interfacial, Transport, and Separation; Biomedical Engineering and Aiding Persons with Disabilities. ***